Regularity questions in the geometric calculus of variations and in geometric flow problems

Proposal DMS-0406209

Abstract

``Regularity questions in the geometric calculus of variations
and in geometric flow problems'' (Leon Simon and Brian White)

Leon Simon plans to pursue various questions related to the structure
of the singular sets of minimal submanifolds and energy minimizing
maps. More specifically Simon aims to establish first order
regularity (i.e. that the singular set lies in a locally finite union
of continuously differentiable submanifolds) for various multiplicity
1 classes near points where there is a tangent cylinder with a
cross-section which admits a calibration. Such a result would in
particular apply to mod-2 minimizers near ``top-dimensional'' singular
points. Brian White plans to study regularity properties of mean
curvature flow, including non-uniqueness properties and ``fattening.''
In addition he will continue his work on the singular structure of
minimizing cones with coefficients in a metric group, and his work on
2 dimensional minimal surfaces with particular emphasis on the study
of branch points.

An understanding of singularities, and how singularities are formed,
is a fundamental element in our overall understanding of many physical
and geometric phenomena. For example, in cosmology singularities of
space-time (e.g. ``black holes'') play a fundamental role, and the
understanding of singularity formation in geometric flow problems is a
key ingredient in the approach of Hamilton, Perelman and others to
Thurston's Geometrization Conjecture. Likewise in the study of the
``canonical'' objects which arise naturally in topology and geometry,
singularities arise in a very natural and unavoidable manner, and the
understanding of these singularities is an absolutely fundamental
problem. As with most non-linear phenomena, there is not a single
general theory which applies in a wide range of different contexts.
Rather, each different context has its own collection of effective
techniques, and it is the development and application of such
techniques in the context of the geometric calculus of variations
which is the focus of the present research proposal. Specifically,
Simon and White propose to continue their efforts toward a more
complete understanding of singularities, and how they are formed, in
the context of area minimizing submanifolds and energy minimizing
maps, and in the context of various geometric flow problems.